RIA: Query Optimization for Parallel Executions

Query Optimization refers to the selection of an efficient execution strategy for database queries posed in declarative languages, as typified by SQL. The design of successful query optimizers for sequential processing has contributed significantly to the success of relational database systems. However, current solutions to the problem of query optimization for parallel executions are inadequate 4 and limit the potential success of database systems on parallel machines. This project is concerned with the design an implementation of parallelizing query optimizers. There are two basic challenges in the design of parallelizing query optimizers. The first is the design of near-accurate cost models that predict the time it takes to complete the parallel execution of an execution strategy. The second is the design of reasonably efficient search algorithms which search for the plan with the minimum cost.